Categorization and Consequences of Gender Beliefs

The original award BNS-8604993 was made as a 2-year continuing grant. The P.I. has transferred from Purdue University to The Graduate School and University Center, CUNY. This award is being made to CUNY as a renewal of BNS-8604993. The scope of the research has not changed and the substance of the original form 9 is still valid.